Applied Harmonic Analysis and Wireless Communications

The increasing requirements on data rate and quality of
service for wireless communications systems call for new
techniques to improve radio link reliability and to increase
spectral efficiency. The three key technologies to achieve these
goals are equalization, diversity, and channel coding.
Mathematics is of fundamental importance to these technologies,
providing the theoretical basis as well as the means for
efficient numerical implementations. The investigator derives a
theoretical and numerical framework for designing equalization
techniques for time-varying channels. Using methods from
pseudo-differential operator theory and time-frequency analysis,
he develops a qualitative and quantitative theory for the
approximate diagonalization of operators associated with
time-varying systems. These theoretical results form a keystone
in the construction of fast and reliable numerical equalization
methods that are based on Krylov subspace techniques. The
investigator also studies the use of frame theory in wireless
communications. Using concepts from sphere packings and group
theory, he analyzes theoretical properties of special frames such
as Grassmannian frames. Furthermore, he develops theoretical and
numerical schemes in connection with multi-carrier communication
systems such as OFDM. This includes the design of transmission
signals with specific properties using a generalization of the
concept of prolate spheroidal wave functions. By taking recent
tools from harmonic analysis into the wireless communications
community, this project enables further advances and
breakthroughs in wireless communications. At the same time it
stimulates new research areas in applied mathematics and paves
the road for further interactions between applied mathematicians
and communication engineers.
The goal of this project is to develop mathematical concepts
and computational methods for wireless communications technology.
The investigator combines modern tools from mathematics with
methods from information theory and signal processing to develop
new concepts and algorithms for key technologies in wireless
communications, such as coding, transmission, and equalization.
Mathematics is of fundamental importance to these technologies,
because it provides the theoretical basis as well as the means
for efficient numerical implementations. By providing tools to
improve radio link reliability and increase data rates, this
project is instrumental in meeting the increasing requirements on
future wireless communications systems. The project produces
conceptual deliverables in the form of new mathematical methods
to analyze and construct wireless transmission systems. The
project also produces concrete deliverables in the form of
numerical algorithms for use in the scientific and industrial
sector.